Ecological Restoration as a Model for the Nature-Culture Relationship

This professional development fellowship will enable an ecologist specializing in restoration biology to study with scholars in the humanities and cultural studies who specialize in environmental ethics and the role of tradition and ritual performance in human societies. His intention is to bring the material he learns to bear on ethical and value questions raised in the practice of ecological restoration and to publish journal and magazine articles on his findings. This base of information about environmental philosophy and the history of ideas about nature will be used in the development of the journal Restoration and Management Notes, which the investigator edits, in curricula, and in conferences, symposia, workshops and other programs of the University of Wisconsin at Madison Arboretum and the Society for Ecological Restoration.